Investigations of Magnetic Helicity - A New Concept in Electricity and Magnetism

Currents flowing in magnetic mediums are found in sunspots, in the dynamo generating the Earth's magnetic field, as well as in the laboratory plasmas used in a variety of controlled experiments. Recently, researchers participating in this project have determined that magnetic helicity (which is a topological concept) could quantify the twistedness or knottedness of magnetic fields and unify a number of observations. The research is an experimental investigation of this concept using experimental equipment to carry on laboratory plasma experiments.